Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1998

This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1998. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative research into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled regulation of gene expression in learning and memory. The overall objective is to understand the biochemistry of learning and memory, behaviors crucial to all animals and an important aspect of how organisms interact with the environment. Transcription is the first step in gene expression and is the starting point for this study. Previous studies on the role of transcription in learning and memory have relied on simple cell- based systems where the interplay between transcription and behavior could not be studied. This research investigates how transcription related to learning and memory is regulated in a whole organism, the fruit fly Drosophila.